Mathematical Sciences: Algebraic and Geometric Topology

The work of three investigators is involved in this project. L. R. Taylor plans to study induction theory (and applications to the algebraic K and L theory of finite groups), certain cohomological questions about low-dimensional manifolds, the modules over the symmetric group given by the cohomology of configurations spaces, and the theory of approximate fibrations. W. G. Dwyer will study the classification of finite loop spaces, realization problems involving Pi-algebras and unstable algebras over the Steenrod algebra, homotopical questions related to the Quillen-Lichtenbaum conjecture, and some conceptual properties of the cotangent complex. E. B. Williams intends to study a general framework for computing the homotopy type of spaces of homeomorphisms and diffeomorphisms of manifolds, and various related questions about the linear and Hermitian K-theory of discrete rings. The details of these three parts vary, but all are concerned either with reducing geometric information to a subject for calculation or to perfecting one of the principal algebraic tools used for this purpose. The nature of the geometric information involved is the crux of the difficulty. While questions about lengths, areas, angles, volumes, and so forth virtually cry out to be reduced to calculations, it is far different with what are known as topological properties of geometric objects. These are properties such as connectedness (being all in one piece), knottedness, having no holes, and so forth. All systematic study of such properties, for example, how to tell whether two geometric objects really differ in respect to one of these properties or are only superficially different, or how to classify the variety of differences that can occur, all these have only truly been comprehended and mastered when they have been reduced to matters of calculation.